Fourier Transform Infrared Spectroscopy

This project will add a Fourier transform infrared spectrometer and two associated sampling accessories to the Lawrence University chemistry laboratory holdings. This instrument will significantly improve undergraduate laboratory work at Lawrence, especially in organic chemistry, inorganic chemistry, and advanced laboratory courses, and in undergraduate research. It will provide the students with an instrument illustrative of the state of the art in computer-controlled instrumentation and in the application of the fast Fourier transform to spectroscopy, two revolutionary developments of the past several years to which undergraduates in a high-quality laboratory program need exposure.